Role of Ca2+/Calmodulin-Dependent Phosphatase in the AdrenalMedulla

Neural stimulation of the chromaffin cells of the adrenal gland results in the secretion of catecholamines (epinephrine and norepinephrine) into the blood stream. Circulating catecholamines are subsequently involved in the regulation of many processes in the cardiovascular, respiratory and digestive systems. Although the cellular events which respond to neural stimulation and result in catecholamine secretion are poorly understood, an increase in the intracellular level of calcium (Ca2+) plays a central role in this process. Many of the intracellular activities regulated by the Ca2+ are mediated by the Ca2+ receptor protein calmodulin and various Ca2+/calmodulin- dependent enzymes which it controls. One of these is a Ca2+- dependent phosphatase, which regulates the activity of other proteins and enzymes by removing a phosphate group from them and altering their structure and subsequently their activity. The objective of this project is to investigate the role of the phosphatase in the chromaffin cells of the adrenal gland. The adrenal phosphatase will be purified and characterized, for comparison to the well characterized Ca2+/calmodulin-dependent phosphatase from brain. Chromaffin cell proteins which are dephosphorylated by the phosphatase in response to stimulation will be identified and characterized and their dephosphorylation correlated with increases in intracellular Ca2+ and catecholamine secretion, in order to understand their role and that of the phosphatase in catecholamine release. The results of this study will provide insight into cellular mechanisms by which Ca2+ regulates catecholamine release from chromaffin cells as well as the role of the phosphatase in stimulus-secretion coupling in the adrenal gland and other secretory organs. The Ca2+/calmodulin- dependent phosphatase is a major calmodulin-dependent enzyme in the brain and may represent a primary target for Ca2+ in the cellular events resulting in neurotransmission.